Stability for a Conducting Thermomicropolar Fluid

In this project the principal investigator will study the stability of steady solutions of the system of partial differential equations that describes the behavior of an electrically conducting fluid under the influence of an external magnetic field. In particular, she will derive energy estimates of the solutions of an interesting physical phenomenon that couples fluid dynamical effects with electromagnetic effects in an inherently nonlinear way. Many fluid-flow phenomena of importance in science and technology today involve complicated fluids that are subjected to many different types of forces. In this project the principal investigator will look into the stability of steady (i.e., time- independent) solutions of the system of equations that models the behavior of an electrically conducting fluid that is under the influence of thermal and magnetic forces. Such flows arise in technologically vital areas like the fabrication of polymers and liquid crystals and the accurate modelling of suspension flows.